Intracortical Connections Underlying Cortical Function

Visual information is carried by the optic nerves to a major center called the lateral geniculate nucleus (LGN), which in turn projects to two major areas of the cortex of the brain, called Areas 17 and 18. When a single cell in the visual pathway responds to a visual stimulus, that stimulus is said to be in the cell's "receptive field." Past discoveries have shown that some cells in the visual cortex only respond to stimuli in particular locations and having particular properties (such as orientation of a line, or movement in a certain direction), which may be quite complex. Cortical cells were discovered to be organized in a columnar fashion, where cells within a column share sensitivity to a preferred visual stimulus. This study will examine the cortical connections in Area 17 that extend horizontally, among the columns. Cellular dye labels, autoradiography, and the new methods of optical recording will be used to visualize the anatomy of the connections. Physiological recordings in a newly developed preparation of an isolated slice of cortex will reveal how these horizontal connections function at the synaptic level. Together these studies will clarify how visual information over a wide region of the animal's visual world are integrated in the visual cortex. The results of this novel approach will be very important for visual science, and may have impact on other areas of neuroscience and information processing studies.